Equipment to Measure Fine-scale Water Column Structure of Lakes

This award to the State University of New York College at Buffalo is made in response to a proposal submitted to the NSF's Instrumentation and Laboratory Improvement Program, a program whose goal is to extend support for undergraduate instructional instrumentation. The award will provide one-half of the funds needed to acquire instrumentation for the measurement of the properties of aquatic systems. The institution is committed to matching the NSF contribution for this equipment. The instrumentation will be used to enhance the undergraduate geology and environmental studies curriculum at two colleges and will provide students with the opportunity to acquire and process field data for aquatic systems.